Algorithms and Structures for Real-Time Signal Processing

High-speed processing technology, parallel algorithms and architectures, and VLSI implementation of systolic arrays have made possible many new applications of real-time digital signal processing. The investigators are working in this algorithms and architectures area as applied to sensor array beamforming, adaptive arrays, and time-varying tracking. Additionally, they are looking at the theoretical problem of decomposing dynamical systems or processors into "digital processor primitives" for effective real-time processing.